Computer Aided Learning Lab for Undergraduate Computer Science

Under this project, an Appletalk Local Area Network will be set up linking 16 Macintosh computers, a hard disk, and two Imagewriters. The resulting laboratory will be used for the undergraduate teaching of programming algorithms. Besides graphics, dynamic animation of data structures and algorithms, the timing and measurement of algorithms, and the associated data analysis and graphing will be used in the laboratory.